Kinetic Measurements and Modeling of Hydrothermal Conditions

This award in the Environmental Geochemistry and Biogeochemistry Program is jointly supported by the Divisions of Chemistry, Earth Sciences, and Chemical and Transport Systems Engineering, and by the MPS Office of Multidisciplinary Activities. Drs. Thomas B. Brill, Chemistry Department, and Michael T. Klein, Chemical Engineering Department, of the University of Delaware will investigate the kinetics of synthesis of small organic molecules in hydrothermal environments. Conditions of high pressure and temperature occur widely throughout the Earth's crust, creating conditions for synthesis and alteration of organic feedstocks. In this research, the kinetics of simple reaction pathways will be determined at high water density in the presence of salts and particles, modelling conditions at a hydrothermal vent. The results are expected to complement the thermodynamics parameters that have been determined previously. A high performance flow reactor, monitored by FTIR and dispersive Raman spectroscopy, will be used to carry out the experiments under controlled conditions of temperature and pressure. Emphasis will be placed on reactions of simple molecules such as urea, ammonia, carbon dioxide, hydrogen sulfide, and carboxylic acids. The effects of various soluble and insoluble salts as well as changes in acidity and ionic strength will be determined. Automated kinetic modeling (AKM) will be used to formulate and reduce complex reaction schemes of compound families by drawing upon a matrix of qualitative and quantitative correlations in addition to detailed kinetics. In the vicinity of hydrothermal vents, unusual thermodynamic conditions lead to production of complex organic molecules by mechanisms that are not understood. The objective of this investigation is to determine the kinetics of some chemical reactions under hydrothermal conditions. Synthesis, degradation, and alteration of organic and inorganic compounds will be modeled with newly developed computational software.